Engineering Research Equipment Grant: An Experimental Facility to Study Transport of Hazardous Wastes and Chemicals in Soils

This award is for the purchase of equipment needed for research on modeling of surface and subsurface flow interactions, contaminant transport in ground water, transport of concentrated organics in saturated and unsaturated soils.